CONFERENCE: The 22nd International Conference on Arabidopsis Research to be held June 22-25, 2011 in Madison, Wisconsin

Intellectual Merit: The meeting for the 22nd International Conference on Arabidopsis Research (ICAR) will be held June 22-25, 2011 at the University of Wisconsin-Madison. This will be the first meeting since 2006 and the last one until at least 2014. The breadth of the conference makes it an important focus for the exchange of information in this era of scientific specialization. The conference will cover a range of topics: 1) Translational Plant Biology, 2) Hormone Signaling, 3) Organ and Cellular Polarity, 4) Epigenetics and Small RNAs, 5) Stem Cells, 6) Biotic Interactions/Stress, 7) Environmental Responses Global Regulation of Transcription, 8) Natural Variation/Quantitative Genetics/Evolution and 9) Computational Biology.

Broader Impacts: The broader impacts of this meeting allow for new efforts and collaborations to be discussed. In addition, the participation of young and ethnically diverse scientists ensures the future of the field. A conference website will feature the complete program.